Electrocatalysis on Surfaces Modified by Foreign Metal Adatoms

The primary objective of this U.S. Yugoslav cooperative research project between Radoslav Adzic of the University of Belgrade's Institute of Electrochemistry and Ernest Yeager of Case Western Reserve University's Department of Chemistry is to investigate the electrocatalytic effects and reactions on surfaces modified by foreign metal adatoms. Through these joint experiments and observations, the investigators propose to predict the catalytic properties of electrodes. Such research could have important applications in electrochemical energy conversion and metal deposition. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State and no NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Funds include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.